MRI: Acquisition of CCD Single Crystal X-ray Diffractometer

With support from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at the University of Akron will acquire a X-ray diffractometer with CCD detector for single crystal diffractometry. This equipment will enhance research in a number of areas including the following: a) cyclyne and heterocyclyne chemistry; b) metal-silyl complexes; c) synthesis and characterization of electron deficient, organometallic compounds; d) coordination polymers as zeolite analogs; and e) the preparation, understanding and utilization of dendritic macromolecules.

The X-ray diffractometer allows accurate and precise measurements of the full three dimensional structure of a molecule, including bond distances and angles, and it provides accurate information about the spatial arrangement of the molecule relative to the neighboring molecules. These studies will have an impact in a number of areas, including the preparation of more efficient catalysts and materials chemistry.